Program for Gender Equity in Science, Mathematics, Engineering and Technology (PGE): Girls for Planet Earth (DEM)

The Wildlife Conservation Society/Bronx Zoo seeks NSF funding to develop an exciting
new three-year program designed to engage girls and young women in science. Operated with the
Girl Scouts of the USA, the National 4-H Council, the Boys and Girls Clubs of America, Girls Inc.,
and the Children's Aid Society, the program will reach thousands of girls across the U.S. over the
grant period and thousands more thereafter. The WCS is uniquely qualified to run this program,
having on its staff many women science professionals who are national and international leaders
in their fields, and having conducted a number of pioneering programs for young women in the
recent past. The 36-month program will consist of:
- An Annual Earth Summit that will introduce 80 girls ages 14-17 to environmental science,
including key environmental issues in regions across the U.S., as well as to careers and women
role models in environmental science. (The girls will attend the Summit in teams of two or
three.)
-A series of service-learning projects through which the Earth Summit participants will be
strongly encouraged to apply what they have learned in a community-based project that
combines knowledge, service and reflection.
-A program of technical assistance, through which the participants will be provided with
ongoing assistance that will enable them to more effectively plan and implement their service-
learning projects; and
- A ``Virtual Club House,'' through which the girls will be able to communicate with each other
and WCS staff about the program and environmental issues. The clubhouse will also showcase
projects that the Earth Summit participants will conduct and explain how other young people
might undertake similar community outreach and research projects.

The proposed program represents a unique means of increasing the participation of girls
and young women in science. It will capitalize on the enthusiasm young people have for animals,
nature, and for visiting informal science centers, such as the Bronx Zoo, to excite girls and young
women about science learning. The program will also seek to increase involvement through a
focus on ecology and environmental science, subjects that are of immediate relevance to students.
With their world being increasingly altered by human activity, what happens to the environment
is of tremendous importance to the daily lives of girls and young women today and will become
even more so in the future. By focusing on content that is immediately relevant, we believe the
program will significantly increase participant involvement.

The program will build on a hugely successful Wildlife Science Careers Program that the
Wildlife Conservation Society has been undertaking over the past three years in conjunction with
the Girl Scout Council of Greater New York. This extremely popular program has involved 315
eighth- and ninth-grade Girl Scouts and trained many of them to introduce thousands of younger
Girl Scouts in New York City to career opportunities in science. The new program will allow the
WCS to reach girls across the U.S., to involve girls in science projects that will be of benefit to local
communities, and to broaden the emphasis of the Wildlife Science Careers Program from science
careers to a more general focus on environmental science and local environmental issues.